Space Weather: Using L1 Observations to Predict Solar Wind Conditions at Earth

This study will develop empirical relations to determine the probability that solar wind events at L1 appear in a similar form at Earth. The PI will look at correlation coefficients between plasma and magnetic field data at these two locations for various solar wind conditions to determine the reliability of L1 predictions for various solar wind conditions. In addition, he will look at specific features, such as pressure pulses and shocks, to see what percentage detected at L1 are observed at Earth and whether the strength of these features varies from L1 to Earth. These empirical relations can then be incorporated into forecasting models to give a measure of the reliability of the predictions.